Mn(III) Based Oxidative Free Radical Cyclizations (Chemistry)

This research is being supported by the Organic and Macromolecular Chemistry Program. It will develop the methodology for a potentially very general route into polycyclic structures. These are found in many of the complex molecules used in modern medicine and agriculture. This research will develop the manganese (III) based oxidative free radical cyclization into a reliable and versatile method for the synthesis of highly functionalized cyclic and polycyclic compounds. The research program will focus on the following questions: (1) the scope of initiating groups; (2) the type of double bond substitution patterns that can be tolerated and whether endocyclic or exocyclic radicals are formed; (3) the ring sizes that can be formed; (4) the functional groups that can be tolerated on the double bond; (5) the functional groups that can be tolerated elsewhere in the molecule; (6) the scope of the aromatization reaction; (7) the effect of additives on the nature of the reaction; (8) the scope and limitations of the oxidative termination with Mn(OAc)3.2H2O and/or Cu(OAc)2.H2O, LiCl and LiX; and (9) the scope and limitations for the formation of a second or third ring.